Multiple Pathways Regulate Na+-H+ Antiporter in the Sea Urchin Egg and Early Embryo

The changes of two ions, calcium and proton, are of importance in fertilization . Increasing calcium activity and decreasing proton activity are parthenogenetic, while suppression of the normal changes during fertilization blocks development. Past research has demonstrated a second messenger pathway initiated with hydrolysis of phosphatidylinositol 4,5-bisphosphate in the egg membrane, similar to that suggested during mammalian cell proliferation. Further analysis of the control of ion fluxes during fertilization suggests another regulatory pathway, which is independent of inositol lipid hydrolysis. The proposed research is directed towards the identification of this alternative regulatory pathway. Attention is focused towards possible calcium-calmodulin dependent protein kinase regulation. Multiple regulatory pathways on ionic fluxes during mitogen stimulated mammalian cell proliferation have also been reported. An important group of mitogen that do not require inositol lipid hydrolysis have receptors with tyrosine kinase activity. Phosphorylation-dephosphorylation has been recognized as an important cellular regulatory mechanism. The steady state of phosphorylation of a protein depends upon the kinase and phosphatase activities specific for the protein. Tyrosine phosphatase and phosphatase inhibitor activities have been measured in the sea urchin egg. Their possible regulatory actions during fertilization will be investigated. Finally, a novel feature of fertilization is the formation of acid compartments. A procedure to isolate these organelles is described and is utilized for characterizing the formation of the acid compartment. %%% Fertilization of the egg initiates a dramatic series of that lead to the quiescent egg becoming metabolically very active and its beginning to divide. Among the earliest changes are changes in the intracellular activities of calcium and hydrogen ions. This study is to investigate these changes and to relate similar changes known to be involved in regulating cell division in mammalian cells.